Interpolation and Related Topics

Abstract
McCarthy

Pick interpolation has, for the last 30 years, been a very successful
blend of functional analysis, operator theory and function theory.
The proposer intends to study it in the context of complex geometry.
The more specific goals are to understand interpolating sequences in
many algebras - not just the algebra of bounded analytic functions
on some domain, but multiplier algebras of more general function spaces.
More generally, viewing interpolation problems as questions about
curvature, the proposer seeks to understand the geometry of the maximal
ideal spaces.

Feedback mechanisms have been used in engineering for a long time
to stabilize systems. The design of such systems is difficult,
not least because the system that one wants to stabilize is, in practice,
not known exactly, but only approximately. Many ad hoc approaches were
used, but about 20 years ago an idea surfaced that enabled the problem
to be confronted directly. This was a form of control theory that allowed
robust stabilization. It relied on a mathematical technique
called interpolation - finding a nice function that takes certain values.
The aim of the current proposal is to greatly increase the class of
interpolation problems that can be solved, so that systems that must
operate under two qualitatively different constraints simultaneously can
be stabilized.